Light Scattering Studies of Semiconductor Heterostructure Interfaces

9521507 Menendez This research aims, using advanced Raman scattering capabilities, to understand details of growth phenomena affecting disorder at GaAs/AlAs superlattice(SL) interfaces, and interface chemistry and physics relationships to III-V SL optoelectronic properties. This approach will be used to study basic chemical and physical processes that produce disorder at heterojunction during growth. In addition, the vibrational and electronic properties of ultrasmall structures and the stresses in semiconductor devices will be further investigated. The project also includes modeling and simulation to predict phonon frequencies in complex materials for comparison and interpretation of experimental results. %%% An advanced laser light scattering with computer simulation has recently been developed and will be used for basic research of chemical and physical properties of ultrasmall structures, and heterojunction interfaces. This project will be important for advances in microelectronics and photonics because progress in the miniaturization of semiconductor devices depends on the availability of material structures whose crystalline and chemical properties can be controlled at the atomic level. Additionally, an important feature of the program is the training of graduate and undergraduate students in a fundamentally and technologically significant area. ***